Experimental Studies of Primitive Meteorites at High-Pressure

The principal investigator will experimentally study primitive meteorites under extremely high-pressure conditions. Results will be used to assess chemical aspects of the early differentiation of the Earth.